Optical Spectroscopy of Quantum-Confined Electrons at High Magnetic Fields and Low Temperatures

This proposal describes research on confined electron systems using optical measurements in the highest magnetic fields and lowest temperatures available at the National Magnet Lab. The research involves a collaboration with crystal growth experts at AT&T Bell Labs. High-quality GaAs structure with quantum wells and other confined geometries will be investigated in magnetic fields to 69 T and temperatures as low as 0.03 K. Phenomena being investigated include Wigner crystalline solids, the fractional quantum Hall effect, metal-insulator transition and excitations of coupled Landau-intersubband levels. The materials will be investigated with inelastic light scattering and emission spectroscopy.